SBIR Phase II: Organized Search Results with Document Clustering

This Small Business Innovation Research Phase II project will produce advances in document clustering technology. The company's proprietary software transforms a long list of raw search results into organized hierarchical folders that are browsed in Windows Explorer style. This software brings into easy view relevant information that otherwise would remain buried in the search results. It also enables effortless knowledge discovery: at a glance, a user learns themain subtopics corresponding to the query. The company has the first document clusteringtechnology good enough for mass use, in terms of speed, quality of the clustering, and ease of interaction.
The resultant software product will augment the capabilities of web, enterprise, and database search engines. The market will include search engine vendors, system integrators and large organizations in business, academe, and government.